Boundary Layers Over Moving Walls

Research to be carried out under a Research Initiation Award will investigate experimentally the effect on the turbulent boundary layer on a wall of dynamically modifying a section of that wall. This section will be made to move in the streamwise direction. Hot wire measurements will determine turbulent stresses and other statistical correlations, to characterize the details of the flow modification. Boundary layer control can be utilized to reduce friction losses and surface transfer in a variety of fluid engineering systems.